Electronic Biosensors for Immunoassays: A Surface Conductance Approach

There is a large potential market for biosensors in the clinical and health care fields and for industrial process monitoring. Often biosensors require expensive equipment and procedures that are confined to the skilled operator and thus are unsuitable for many purposes outside the analytical laboratory. The use of monoclonal antibodies offer the possibility to monitor a wide range of important chemicals using this approach. A novel signal transduction method is proposed that could lead to simplified monoclonal antibody-based immunosensors. The technical approach to be utilized for signal transduction will be one in which resistance changes of a ultra thin metal film containing surface adsorbed (immobilized) antibodies, will be measured when conjunction with the antigen occurs. When this interaction occurs, it is envisaged that the changes in molecular adsorption between the macromolecules and the underlying substrate will be extensive and readily detectable using the resistance approach.